Request for the Annual ISEF Bok and Lines Awards

This award to the American Astronomical Society will be used to provide financial awards to three high school students who present astronomical research projects that are judged to be outstanding at the annual Intel International Science and Engineering Fair (ISEF). The American Astronomical Society (AAS) administers the awards on the behalf of all participating institutions: the National Science Foundation, the Astronomical Society of the Pacific (ASP), the International Amateur-Professional Photoelectric Photometry (IAPPP), and the American Astronomical Society. The Priscilla and Bart Bok Awards, awarded jointly by the AAS and the ASP, and the Richard D. Lines Special Award in Astronomy, sponsored by the IAPPP, are used by students to further their education and research efforts. Students also receive funds that allow them to travel to the winter meeting of the AAS to present the results of their research. Each student's school also receives a modest amount that can be used by their science departments to enhance their science programs.